Workshop On Physical & Numerical Modeling of Mantle Connection of Lithospheric Dynamics

9421906 Melosh The project will provide support for several US numerical modelers to attend the workshop on tectonic modeling of convective and tectonic processes in Oleron, France, June 20-26, 1993. This workshop is a unique gathering where codes and numerical methods of solving tectonic problems are emphasized, rather than the results of such application. In particular, the workshop provides a forum for the benchmarking of numerical codes. The interactions and sharing afforded by such a workshop are invaluable in the advance- ment of the science. ***